Indiana Speech Training Aid (ISTRA)

This research project is concerned with the application of speech recognition technology to the development of a speech training aid to help in teaching hearing impaired children to speak intellegibly. The research team involves people in speech recognition, speech analysis and speech therapy. The aim is to develop an inexpensive, personal computer-based speech training device to be used by schools and speech clinics.